Physics Research Experiences for Undergraduates at the Pennsylvania State University

*** Gramila This grant will support a Research Experiences for Undergraduates (REU) site in the physics department of The Pennsylvania State University at the University Park campus during 1997. The REU site will involve 14-20 students in research projects each summer. Students will be involved in projects covering a wide range of frontier research. Such involvement has been demonstrated in the department's extensive record of undergraduate research. As an REU site, the Penn State physics department will mount an aggressive campaign to recruit students into the program, with a wide recruitment area covering Pennsylvania and surrounding, mid-Atlantic region states. Active efforts to encourage minority student enrollment will include personal visits to targeted HBCU physics departments at Morehouse, Clark-Atlantic and Cheyney, and will make use of the Committee on Institutional Cooperation (CIC) of the Big 10 schools. In addition to their own research projects, students will attend special weekly seminars designed to broaden their knowledge of physics and encourage interaction with faculty. The summer program is completed in a day long seminar in which talks by the student participants are presented describing their research projects. Throughout the program, emphasis will be placed on encouraging the students' interest in careers in physics. ***